CAREER: Field-free Transmission Geometry Atmospheric Pressure Matrix-assisted Laser Desorption/Ionization Mass Spectrometry

With this CAREER award from the Chemical Measurement and Imaging Program, Professor Sarah Trimpin at Wayne State University (WSU) seeks to develop, study, and employ new ionization mechanisms for mass spectrometry (MS). Co-funding from the Office of International Science and Engineering enables extension of the work to pair powerful mass spectrometric tools with separations expertise in the group of Dr. Steffen Weidner in the Federal Institute for Materials Research and Testing (BAM) - Berlin.

Recent advances in MS have made it a critically important tool for characterization of a wide range of systems including bio- and synthetic polymers. Dr. Trimpin's work is expanding the range of problems approachable by enhancing capabilities for characterizing biological and physical processes in systems (e.g. cell membranes) where limited solubility impedes study with existing technology. The long-term goal is to develop MS methods that operate without the use of solvents, providing for molecular sampling at the cellular level and enabling complete tissue analyses. Dr. Trimpin's innovative modifications to matrix-assisted laser desorption/ionization (MALDI) offer the first coupling of hybrid ion mobility spectrometry (IMS) MS with high spatial resolution analysis of high-mass analytes (e.g. proteins). The approach produces ions with multiple charges, enabling exploitation of electron transfer dissociation (ETD) fragmentation, a powerful characterization method previously usable only with electrospray ionization (ESI). Dr. Trimpin's group seeks improved understanding of this new MS ionization method, which in turn should enhance understanding of MALDI and ESI ionization processes.

The work will have broad impact in research areas throughout chemistry and biology. It can provide information that will help us understand the functioning of cells and the materials properties of plastics.

Impact of this work is enhanced by Prof. Trimpin's dedication to interdisciplinary teaching and training in promotion of scientific learning for preparation of the ethnic- and gender-diverse student body at WSU for the technology-driven 21st century workplace. In concert with her research and teaching activities, Prof. Trimpin pursues her strong interest in encouraging women to follow scientific careers by interacting with high school and university female students. She is also developing a "Women and Science" support group at WSU.